Mathematical Sciences: Instabilities and Pattern Formation in Flames

The project is concerned with problems of flame propagation in nonuniform flow fields and in confined environments. The investigator will derive and analyze appropriate mathematical models and will study the dynamics of flames in such configurations. The methods to be used are asymptotic and perturbation techniques combined with numerical computations. The primary goal is to construct solutions that permit a fundamental understanding of the relevant physical mechanisms involved in these processes and to enable qualitative comparison with experimental observations. Combustion in closed vessels is a commonly encountered problem, but it is not well understood. The results of this project will provide a better picture of the physics involved and can be used to validate numerical simulations of confined combustion.